MRI: Parallel Computing Environment for Computational Mathematics

Proposal Numer DMS-0215942
PIs: St. John, Baumslag, Cleary, and Rouson.

ABSTRACT

This project is a collaborative effort among members of several
Departments and multiple institutions, all parts of the City
University of New York (CUNY). The group effort includes the
Department of Mathematics, the Department of Computer Science,
and the Department of Mechanical Engineering at City College of
CUNY; the Department of Mathematics and Computer Science, Lehman
College of CUNY, the Department of Computer Science of the
Graduate Center of CUNY, and the Department of Mathematics of
the Graduate Center of CUNY. The research tool that serves as
the hub for the planned activity is a large Beowulf computational
cluster, to be housed at City College.

The planned research projects are genetic algorithms in
combinatorial group theory, evolutionary tree reconstruction in
computational biology, computer experiments on parafree groups,
modelling turbulent fluid flows arising in the early stages of
combustion, and questions and simulations in computer networking.
The cluster will be administered under the Center for Algorithms
and Interactive Scientific Software (CAISS) at City College. This
cluster will also provide an important resource for the
undergraduate and graduate students of CUNY, by giving access
to computing power not usually found at primarily undergraduate
colleges.

The research topics span a wide range of computer science,
computational science, and mathematics. They share the common
approach of involving both experiments and theory, relying on
exploitation of computational resources.